Algebraic Geometry Workshop, June 12-15, 2002, Urbana, Illinois

A four day workshop in Algebraic Geometry is planned, focusing on the
training of graduate students and junior faculty. The format will
emphasize participants working together in small groups led by
mentors. The workshop is designed to engage students and junior
faculty in related areas of algebraic geometry focusing on stacks and
perhaps including computational algebraic geometry. The working
groups will organize around problems and topics within these
subfields. Senior faculty will give plenary lectures to set the
general direction. The expected composition of the workshop is
approximately 60 graduate students, 15 junior faculty, and 8 senior
faculty.

Algebraic geometry is the study of the relationship between algebraic
properties of polynomial equations and the geometry of their solution
sets. During the past century, algebraic geometry has been applied
repeatedly to a wide range of areas of study in pure algebra and pure
geometry. More recently applications have emerged in theoretical
physics, cryptography, and engineering. The workshop is designed to
complement other forms of training received by junior algebraic
geometers, providing them the experience of actively doing research
with their peers and mentors.